New England 1st Nanomanufacturing Workshop

Basic discoveries and innovations in manufacturing methods and processes will be needed to take advantage of the full impact of nanotechnology. Nanomanufacturing is expected to be high-volume, high-rate, integrated assembly of nano-elements into reliable and robust commercial products. This involves controlling position, orientation, and interconnectivity of the nano-elements.

The goal of the workshop is to address moving from laboratory fabrication and prototyping, into industry-floor manufacturing. A full day tutorial on nanomanufacturing, poster session and a nanotechnology infrastructure tabletop exhibit is also planned. The multidisciplinary experts from academia, industry and small business will address many important issues and provide insight and recommendation to ward overcoming the barriers to Nanomanufacturing.